Electronic Properties of Some Novel Mott Insulators

Electronic structure of two classes of novel Mott insulators will be studied under this Materials Synthesis and Processing Initiative grant: the crown-ether electrides and the layered transition metal oxides. Although these oxides are believed to be traditional Mott insulators explained by the Hubbard model, in fact the ground state of that model disagrees seriously with experimental Bragg neutron scattering. The assumptions of this model will be examined with the objective of finding an appropriate replacement that will describe the observed spin density as well as the excited states. A novel feature of the crown-ether electrides is that the anions are simply the localized electrons themselves. Calculations on isolated crown-ether molecules suggests that the localized electrons will trace their lineage to a highly diffuse Rydberg-like orbital occupied by the unpaired electron. The diffuse character of these molecular electrons may permit them to become localized in the cavities formed "between" the molecular ions. This proposition, as well as the spatial distribution of the ordered magnetic moment in the transition metal oxides, will be explored using ab initio Hartree-Fock theory as well as multi-band Hubbard models using both variational and perturbation methods. %%% Theoretical research will be conducted as part of the Materials Synthesis and Processing Initiative. The primary focus will be on a theoretical explanation of a new class of electride materials - the crown-ethers. These materials have been synthesized at Michigan State and a firm theoretical explanation is required. In addition, research will be conducted on a related material, the transition metal oxides, which is important as the precursor material for high temperature superconductors.